Single-Molecule Trapping and Nanoscale Dielectric Response

Katharine Hunt is supported by a grant from the Theoretical and Computational Chemistry Program to perform theoretical studies of single molecule trapping and nanoscale dielectric response. The goal of this research is to develop a quantitative model for optical trapping of DNA fragments labeled with intercalating dyes, and the trapping of dye-labeled polystyrene spheres. In analyzing the interaction between a laser field and a large molecule such as DNA, Hunt will consider the intramolecular distribution of induced polarization rather than using a single global polarizability. Nanoscale dielectric response will be investigated by ab initio calculation and analysis of two non-local dielectric functions, one that characterizes the intramolecular potential screening, and a second one that relates the dielectric displacement to the local Maxwell field. The result will permit the calculation of many-body properties, including solution-phase dielectric functions.

The capability to observe, trap, and manipulate individual molecules of biological importance opens up a range of new possibilities for investigation, and for molecular-level control. Some possibilities include: ultrasensitive DNA analysis, chromosome manipulation, direct observation of intracellular transport of biomolecules, observation of conformational fluctuations in DNA, the study of the dynamics of supercoiling / uncoiling transitions, and schemes for rapid DNA sequencing. Hunt's research will contribute to a physical understanding of this newly discovered phenomenon at the molecular level.